Collaborative Research: Seismic Studies of the Galapagos Hotspot

The Principal Investigator has conducted a reconnaissance, land-based seismic experiment designed to address questions about whether a mantle plume is associated with the Galapagos hotspot, whether the plume penetrates the mantle transition zone, the location of the hotspot/plume, the lateral dimensions of the hotspot/plume, and the form of hotspot-lithosphere interaction. The present project will thoroughly analyze the seismic data, publish the results, and support scientific and educational collaborations with the Instituto Geofisico, Escuela Politecnica Nacional, Quito, and the Charles Darwin Research Station, Puerto Ayora.